PRIMES: Integration of Mathematical Research and Learning for high school students

PRIMES (Program for Research in Mathematics, Engineering and Science) will select talented high school students from across the U.S. via rigorous testing. Under the guidance of academic mentors, program participants will conduct year-long research projects, write papers, and make conference presentations. Groups of students will also participate in guided reading, online research forums, and a residential summer math camp. The program will create a pipeline of mathematical talent and support graduate students and undergraduates serving as mentors.

Topics for student research projects will include ancient ALE Ricci flows and dynamical energy functionals, refractive outer billiards, fields of definition of abelian surfaces of maximal Picard rank, semisimplifications of representations of gl(n), Temperley-Lieb algebras and canonical bases, tournament and digraph inversions, machine learning for physical systems, sparse inference of earthquake dynamics, and Fresnel inversion and the NASA Cassini Mission. More details and information about the program may be found on the PRIMES website: https://math.mit.edu/research/highschool/primes.